Corner regularizations for nanoscale crystal growth

The investigator focuses on a mathematical issue in the
description of nanocrystal growth: how to properly resolve the
ill-posedness inherent in dynamic models involving crystalline
surfaces with strong anisotropy. Strong anisotropy in the surface
energy manifests itself physically in the formation of corners on
a crystal. Traditional mathematical models applied to the
formation of corners are mathematically ill-posed and thus
intractable. Because the formation of corners during crystal
growth is ubiquitous, the ill-posedness of corner formation is a
problem inherent in simulations of both industrial and naturally
occurring crystal growth. Moreover, it is of critical importance
to modeling crystal growth of nanoscale materials because of the
dominant role of surface effects at small length scales. The
investigator characterizes and evaluates different methods
proposed to remove or regularize the ill-posedness. A widely
employed regularization is a singular perturbation. A significant
mathematical challenge is to characterize the behavior of the
singularly perturbed corner. The investigator studies separately
the role of the regularization in three dimensions and its effect
in the presence of elastic stress. Another important scientific
issue is to determine which of many regularization procedures is
true to the atomic-scale behavior of different materials. The
investigator also considers this question by studying the dynamic
behavior of regularizations in relation to experimental
observations and the relation of regularizations to atomic-scale
models. Overall, the project has the potential for significant
impact on the understanding of a key mathematical issue regarding
regularization of ill-posedness in a classic moving boundary
problem, and the impact of the work in a broader scientific
context is that it contributes to the understanding of how to
model the growth of crystalline solids in materials science.

In the growth of crystals for nanotechnology and other
materials applications, the formation of structures with corners
(as on a grain of salt) is a natural occurrence. The physical
effects responsible for the existence of a corner are well
understood and a mathematical description of an existing corner
can be accomplished with a classical mathematical model. However,
the classical model is incapable of describing the actual dynamics
of corner formation. This problem is present in all mathematical
simulations of crystal growth in which corners form. Moreover, it
is of magnified importance in the simulation of the growth of
nanoscale structures: when the crystal decreases in size, corners
become an increasingly dominant part of the overall structure.
Thus, to correctly describe the growth of nanostructured
materials, it is essential to have a correct model for corner
formation. To obtain tractable models for corner formation,
different "regularization" ideas have been proposed to make the
mathematical problem of corner formation solvable, but there are
many different approaches and no universally accepted procedure.
One aspect of this project is a critical comparison of the
different regularization approaches and how they behave in
relation to actual material systems. A second aspect of the work
relates to the fact that some of these models are "singular
perturbations," which means that the results obtained when the
regularization effect approaches zero can be different than if the
regularization is not present at all. This type of unexpected
behavior can mean that a small regularization that is added to
allow for corner formation might give a different corner shape in
simulations than should be present from the accepted classical
model. Thus, understanding such singular perturbation behavior is
an important part of validating such regularization methods to
ensure that they give the correct overall behavior when used in
large-scale crystal growth simulations. Taken as a whole, the
project has the potential for significant impact as a building
block in our ability to simulate the fabrication of nanomaterials,
and by extension could contribute to the creation of
purpose-specific materials, especially those with nanoscale
features, in electronics and other applications. In addition, the
project involves the training of a graduate student and includes
two undergraduate students, for whom the experience may serve as
stimulus to pursue graduate degrees in the mathematical sciences.